Technicians

9703567 Findley This award to University of Miami provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using three research vessels. R/V Seward Johnson and R/V Edwin Link are operated by Harbor Branch Oceanographic Institution; technical support for these vessels is provided by Rosenstiel School of Marine and Atmospheric Sciences of the University of Miami. RSMAS operates R/V Calanus itself, and provides technical support for that vessel via this award as well. All three vessels are operated as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of ocean science research throughout the North and South Atlantic Oceans in 1997. ***